Students Analyzing Data: A Study of Critical Barriers

9452917nn Konold This is a SGER grant. The purpose of this project is to test the feasibility of a design for documenting and analyzing the nature of difficulties that arise when students are in the process of analyzing real data to solve realistic problems in realistic situations. The studies will include interviews with high school students at the end of an introductory course in data analysis.